NGS: CAREERS: Techniques and Applications of Dynamic Compilation

EIA-0093426
Vikram S. Adve
Univ. of Illinois

CAREERS: Techniques and Application of Dynamic Compilation

Compiler-based program optimization is fundamentally important for current and future computing systems. Static optimization, the predominant approach, will always be essential but is becoming increasingly insufficient for many reasons. These include the popularity of high-level, object-oriented languages, the proliferation of portable, interpreted languages like Java, and the increasing complexity of processor architectures. All of these trends imply that dynamic compilation (including runtime program analysis, runtime optimization, and runtime code generation) is likely to be extremely important technology for achieving high performance in current and future application.

The infrastructure developed through this work will support a broad career plan that integrates teaching and research. The software will contribute to the PI's educational efforts through class projects in introductory and advanced classes and through recruiting undergraduates for these research efforts.